Standards in Education for Product, Process, and Service Design and Development: A Proof-of-Concept Project

The IEEE is partnering with the Colorado School of Mines and DeVry University - New Brunswick to produce a small suite of case studies illustrating the application of standards in the design and development of products, processes, and services. They are linking these cases to web-based tutorials and reference guides on standards and to applications in design and development. These materials are helping students and their faculty mentors understand how standards are repositories of the knowledge and wisdom of their professional predecessors and are an essential resource in design and development. To assess the effectiveness of these resources in increasing the students' understanding and application of standards, they are using surveys, focus groups, and think-aloud techniques. Dissemination plans include papers at regional and national engineering education conferences, publication in ASEE and IEEE journals, and hosting the material on the IEEE web site, eventually leading to the web-based IEEE Standards Learning Library.